The Leadership Institute for Teachers of Physics

The Leadership Institute for Teachers of Physics will enable twenty-four high school teachers of physics to have background lectures, discussions of teaching strategies, and on site visits to research laboratories during a four week summer program before they introduce four physics modules of material of current scientific interest into their own courses. High school science teachers have worked with Rutgers University faculty, industrial scientists at AT&T Bell Laboratories and Bell Communications Research to develop the modules: Lasers and the Nature of Light, Lightwave Communication, Magnetism and Magnetic Recording, Semi-conductors and Transistors. After the summer institute, the Lead Teachers will receive continuing logistic and scientific support through the Center for Mathematics, Science, and Computer Education in their efforts to introduce the modules into their own courses and to hold workshops for other science teachers. High school science teachers have worked directly with scientists as a five member team to develop science modules, bridging the gap between institutions that are rich and science and technology and the schools. The project was funded by the New Jersey Department of Higher Education jointly with AT&T Bell Laboratories, Bell Communications Research, Merck and Co., and Rutgers University. The Leadership Institute will disseminate this material by providing high school science teachers with teaching units of current scientific and technological interest, provide the teachers with background scientific knowledge related to the units, help teachers develop strategies and techniques for better communication with illustration of scientific principles as well as new developments in science and technology to students, establish continuing relationships among teachers, university personnel, and industrial scientists. Teachers, science supervisors, and other school administrators have been involved in all phases of the planning from the beginning. A feature which is particularly successful is the acceptance of teachers as colleagues and collaborators by the industrial and university scientists. The teachers found the work with the scientists to be professionally rewarding. The teachers are themselves involved in the creation of the materials which they will use in their classrooms.